Mechanisms of Associative Learning

Associative learning is one of the basic processes of knowledge acquisition and one that has historically been held to be central to human cognition (as it is in current "connectionist" or "adaptive-network" models). One approach to understanding the fundamental theoretical and neurobiological mechanisms involved is through investigation of classical conditioning with animal subjects, where the pairing of a conditonal stimulus (CS) and unconditional stimulus (US) causes the CS to take on behavioral effects related to those originally produced by the US. Dr. Wagner's research, which makes use of classical conditioning in the rabbit, is in this general vein. The particular focus of this project is on a question that has equal implications for pursuing the neurobiological substrates of conditioning and for the development of abstract computational models. Dr. Wagner and his associates will investigate the possibility that associations that involve the "emotional" consequences of a US are categorically distinguishable from associations involving specific sensory-motor consequences. At issue is whether or not the two classes of association are differentially influenced by the conditions of training and have different forms of behavioral consequence (notably, with sensory-motor association being identified with the elicitation of specific conditional responses while emotional associations have modulating effects on otherwise-elicited conditional and unconditional responses). If upheld by the results of Dr. Wagner's research, the distinction would encourage a hierarchical, adaptive-network extension of existing models of associative learning.